Expansion of the NCSU Insect Collection

9709141 Deitz This project will allow the expansion of the regionally important North Carolina State University (NCSU) insect collection significantly, allowing for better curation and scientific access. It will provide space for the collection to incorporate an important collection of Collembola, which are not common in insect collections. It also provides for the incorporation of a Coleoptera collection that is currently housed in substandard materials. Both of these collections are at present difficult of access and endangered by their mode of storage. This award will provide archival-quality storage for the specimens, permit the integration of the collections into existing holdings, and facilitate scientific study of the specimens. This award, though small, represents a strong partnership between the awardee institution and the NSF, because NCSU has provided additional space for the collection and 10% of the purchase price of the equipment needed for the project. DEBpop:RCSE:FY97:Spring:abstracts:9709141.txt